CONFERENCE: 2011 Chromosome Dynamics Gordon Research Conference to be held July 10-15, 2011 in West Dover, VT

Intellectual Merit
The biennial Gordon Research Conference on Chromosome Dynamics will be held at Mount Snow Resort, West Dover, VT from July 10-15, 2011. This conference brings together researchers studying different aspects of chromosome biology. It is unusual in its broad scope, including genome structure, chromosome interactions and segregation, chromatin, telomere/centromere biology, epigenetics, DNA replication and repair. Unlike more specialized conferences, it seeks to foster communication among diverse investigators studying different aspects of chromosome dynamics. In addition to covering diverse areas of chromosome biology, the conference has traditionally featured biophysical approaches to structural and functional aspects of chromosome biology and this year's session, "Views of Chromosomes and Chromosomal Proteins" features speakers on state-of-the-art microscopy and single-molecule studies and other emerging technologies. For the first time, the 2011 conference will feature a session on "Genomic Structure and Evolution", an important feature of chromosome biology.

Broader Impacts
The Gordon Research Conferences stress a highly interactive scale and format, with ample opportunity for intense discussion of current findings and ideas. This conference format allows new investigators, postdoctoral fellows and graduate students to have the opportunity to present their work in several venues (platform talks and poster sessions) and to interact with the many of leaders of the field. Two talks in each session have been reserved for speakers to be chosen from the submitted abstracts, allowing postdoctoral fellows and graduate students the opportunity to present their work, some for the first time. The program has been designed to represent the diversity of the field and 44% of the confirmed speakers are women. The conference will benefit both established and new investigators by providing an exposure to areas outside their specific fields and by providing interactions with some of the most thoughtful and innovative members of the field.